Traceability Based Dynamic Metrics as a Tool for Evaluating Partitioning Decisions in Object-Oriented Architecture

This research investigates a new method of assessing predicted performance
characteristics of Object-Oriented software architectures. As scenarios
represent the anticipated runtime behavior of a system, they can be used at
a very early stage in the design to quantitatively predict aspects of that
behavior. The proposed approach can be applied earlier than other existing
methods such as simulations and executable designs, and does not require
special analytical skills. Early assessment is an important risk mitigation
technique, that can contribute significantly to the task of building a
distributed system with a greater degree of confidence in its ability to
perform as required.

The research involves formally defining a set of scenario-based metrics and
a corresponding system-wide dynamic metrics model. A strongly typed
traceability scheme is defined to support the definition and automated
querying of relationships between performance requirements, scenarios, and
architectural components. Scenario invocation rates are specified within
the context of typical usage patterns, and the relationship between
scenarios is investigated to determine when performance requirements should
be propagated from one scenario to another. A supporting tool is developed
and used to capture metrics and validate them against runtime and simulation
measurements taken from a variety of distributed systems.